Electrons and Phonons in Carbon and Related Materials, Including Fibers

Fundamental research to understand basic electron-phonon interac- tions in C60 molecules(bucky balls) and related materials including fibers will be conducted. With respect to C60 the emphasis is on understanding vibrational modes and electron- phonon interactions utilizing femtosecond laser pulse-probe and high magnetic field techniques. The research is of particular interest for providing a sounder scientific basis for understanding the properties of the newly discovered carbon molecules such as C60, and fiber analogs to C60 which can be viewed as a single graphene (crystalline graphite) layer rolled up to form a cylinder with each of its ends fitting perfectly to half of a bucky ball. %%% This research is expected to provide deeper fundamental understanding of basic properties of new carbon molecules and fibers which are potential functional electronic/photonic materials. From an application point of view, understanding these properties and their relationship to materials synthesis and processing is beneficial to advanced technologies related to computing, information processing, and telecommunications.